Diagnostic Studies of Multi-Year Climate Variability

This investigation is directed at improving our understanding of the relatively large amplitude interannual-interdecadal climate variability. The study involves: (a) Development of a better documentation of the nature and causes of the global El Nino- Southern Oscillation (ENSO) cycle, (b) Use of the NMC analysis and forecast model output, to develop a better understanding of the processes associated with tropical-extratropical teleconnections, and (c) Development of a better understanding and description of low-frequency, large basin-scale atmospheric-land surface hydrological variations over North America in general and the Great Plains in particular. This investigation will make valuable contributions toward our ability to distinguish natural climate variability from anthropogenic climate trends.